Support for 15th North American Catalysis Society Meeting; May 18-23, 1997; Chicago, Illinois

ABSTRACT CTS-9704272 Kung Support is provided to partially cover attendee travel expenses and organizational costs of the Fifteenth North American Meeting of the Catalysis Society, to be held on May 18-23, 1997, in Chicago, IL. The meeting is widely respected and well attended by academic and industrial researchers in catalysis of the US, North America and other parts of the World. It serves as a forum of discussion of the upcoming scientific and technological advances in the field, and has a strong educational function for young faculty and graduate students.